Principals for the Advancement of Leadership in Science Network (PALS Network)

Principals for the Advancement of Leadership in Science (PALS) is a three-year project designed to establish a network of centers throughout the United States for the enhancement of science leadership among elementary school principals. The National Science Teachers Association, the National Association of Elementary School Principals, the National Science Supervisors Association, and other public and private groups will form an alliance promoting science leadership of principals. In l988, twelve PALS Network center directors, assisted by a cadre of experienced elementary school principal consultants, will establish centers of science instruction and support for principals. Beginning in l989 each of the centers will conduct three Regional Science Leadership Conferences for principal/partner teams, for a total of thirty-six conferences involving approximately 1,080 school administrator leaders. In addition, the PALS network sites, interconnected by computers and linked to the National Science Education Computer Network, will establish themselves as highly-visible, long-term centers of support and service for advocating science leadership among elementary school principals.